International Seminar on Evaluating Strengthening and Retrofiting Masonry Building

This project to The Masonry Society and the Construction Research Center at the University of Texas at Arlington will coordinate and conduct a series of international seminars on unreinforced and reinforced masonry construction as practiced in the U.S. and abroad. Foreign countries participating are Yugoslavia, Czechoslovakia and Italy. Seminars will be conducted in Boston, Washington, D.C., Chicago and Los Angeles.